Rapid Prototyping Instructional Delivery Support

(58) The project team consisting of investigators from Saddleback College (Lead Institution), Central Maine Community College, Cuyahoga Community College, Tennessee Tech University, San Diego State University, and Rochester Institute of Technology is expanding and disseminating the curriculum model in rapid prototyping (RP) through train the trainer workshops and development of instructional support materials for both teachers and students. The project is providing guidance in the development of technical transfer approaches; marketing material; understanding of the incorporation of Rapid Prototyping integrated in the design process for manufacturing; and maintenance procedures for the purchased Rapid Prototyping equipment. Both formative and summative evaluations are being conducted utilizing an internal and external evaluator. The project dissemination includes regional workshops and support material that is being disseminated through workshops to publicly funded K-12, Regional Occupational Centers, community colleges, and universities. This effort is being lead by the Community College partners. The outcomes are also being distributed through Project Lead the Way by San Diego State University in the West and Rochester Institute of Technology in the East.